Dues to the International Scientific Committee on Solar-Terrestrial Research (SCOSTEP) of the International Council of Scientific Unions (ICSU)

The Scientific Committee on Solar-Terrestrial Physics (SCOSTEP) was formed as a scientific committee under the International Council of Scientific Unions (ICSU) in 1978. It is charged with the long-term responsibility to promote international interdisciplinary programs, to facilitate cross-project cooperation, to organize cross-disciplinary conferences, and to enhance multi-national research collaborations, with the scientific goal of advancing quantitative understanding of coupling mechanisms responsible for the transfer of mass, momentum and energy throughout the solar-terrestrial system. The attendant broader impact of these activities is to improve the predictability of the effects of the variable components of solar energy and interplanetary disturbances on the terrestrial environment.